SGER: Transformative Research Anchored in Science Learning and Teaching Environments (TRANSLATE)

This SGER proposal, a response to current national initiatives focused on secondary science instruction, would collate, examine and broadly disseminate current scholarly research in three critical areas of secondary science education: Inquiry; Reforming Instructional Practices; and Roles of Technology in Instruction. The goals of this proposal include (1) informing practitioners of existing studies; (2) sharing knowledge across the science teacher education community and (3) providing the science education research community with an overview of existing studies and an agenda for future work. The proposed secondary science study would be rapidly and broadly disseminated at professional meetings and through three books, one in each of the critical areas, to be published as part of the NSF/ESIE Foundations series.